Multidisciplinary Study of Meteorites

The petrogenesis of two classes of igneous meteorites, shergottites and ureilites, will be studied by making in-situ measurements of microdistributions of rare earth and possibly other trace elements in various mineral phases. The concentration and spatial distribution of REE will also be determined in crystals of olivine, clinopyroxene, and plagioclase grown from melts doped with concentrations of REE ranging from ppm to percent levels. The objective of this work is to determine the concentration limits of Henry's Law behavior and the applicability of distribution coefficients measured at high concentration levels to the low levels characteristic of natural samples. A modified Cameca IMS-3f ion microprobe will be the primary experimental tool, complemented at high concentration levels by electron probe measurements. The carriers of various isotopic anomalies will be located in different acid residue samples from primitive meteorites. The carriers will be identified by a combination of microanalytic techniques that include analytical electron microscopy, laser Raman, and others. Work will continue on the improvement of ion probe techniques including quantitative ion imaging, improved ion extraction optics, and development of a wider base of calibrated mineral standards. Although the work focuses on meteorites, it is anticipated that the results will also have important implications for studies of terrestrial samples.